Asymptotic Geometry of Eigenfunctions and Polynomials

ASYMPTOTIC GEOMETRY OF EIGENFUNCTIONS AND POLYNOMIALS

Abstract:

This proposal is concerned with the asymptotics of eigenfunctions and
eigenvalues of the Laplacian on Riemannian manifold, and analogues
for the complex Laplacian on Kahler manifolds. Using methods of
semi-classical analysis (the mathematics of the classical limit of
quantum mechanics), the high frequency limit of eigenfunctions is related
to the dynamics of the geodesic flow. The first application is to the
well-known inverse spectral problem for analytic plane domains.
The new idea is to use an exact
formula for the Dirichlet resolvent and a Feynman
diagram analysis of its trace.
One obtains for the first time explicit formulae for so-called
wave trace invariants in terms of the Taylor coefficients of the domain at
endpoints of a bouncing ball orbit. From these one seeks to recover the
Taylor coefficients and hence an analytic domain. So far the best result
is that one can recover a mirror symmetric analytic domain from its
spectrum.
The second application
is to geometry of eigenfunctions. Sogge and the proposer proved that
the maximum possible growth rate of sup-norms of eigenfunctions
only
occurs on boundarlyless
Riemannian manifolds which contain recurrent points, such that
a positive measure of geodesics leaving the point return in a fixed
time.
One project is to prove this (if true) for bounded domains. A similar
analysis is interesting for boundary values of eigenfunctions, which
are important
in boundary control theory. Hassell and the proposer have recently
proved
the ergodicity of boundary values of eigenfunctions when the billiard
flow
of the domain is ergodic, and this gave the first asymptotic estimates
of
even the L2 norms of the boundary values. Methods developed in that
paper
should have further applications to the geometry of eigenfunctions. The
third project,
joint with B. Shiffman
is to apply semiclassical methods to statistical algebraic geometry,
i.e., to
finding statistical patterns in the zeros of polynomials. Among the
patterns found
so far are that zeros of systems of polynomials tend to repel in
dimension one,
be liike a neutral gas in dimension two and attract in higher
dimensions. New
problems are to explore the dependence of the distribution of zeros on
the Newton
polytope or on the number of monomials, as in Khovanski's fewnomial
theory.

Semiclassical analysis is the area of mathematics which explores the
classical
limit of quantum mechancs, i.e.the limit where the fuzzy, jumpy small
scale behavior
of atoms and molecules merges with the solid, mechanical world we
experience.
Planck's constant h measures the length scale. Although it arose in
physics,
the same limit, as h tends to zero, arises in many problems in
mathematics and
science, often quite disconnected from the original physical
background. This
proposal is concerned with several problems of this kind. Several are
traditional
and well-known problems, for instance trying to determine a domain from
its
frequencies of vibration. Using semiclassical analysis of a kind more
familiar to
physicists than mathematicians (Balian-Bloch methods, Feynman
diagrams),
the first project is to obtain the best results to date on the problem,
can one
hear the shape of a drum. The results so far indicate that this method
is better
than any prior method. Another project is to view the degree of a
polynomial
as 1/h (inverse Planck constant) and to use semiclassical methods to
find new
statistical patterns in zeros and critical points of polynomials. One
result is
that the exponents which occur in the polynomials have a big impact on
the
positions of the zeros, leading to a tunnelling theory of zeros
analogous
to the tunnelling theory of electrons through barriers.